Noise and Vibration Laboratory

9451747 Cameron The objective of the project is to develop a laboratory component to a new course - Acoustics, Noise and Vibration. GMI students and their employers represent a broad spectrum of manufacturers. For many of these manufacturers the control of noise and vibration has become a major concern as public demand has increased for smoother and quieter appliances, vehicals, etc. Employees in industrial firms also require protection from potential harmful industrial noises and vibrations. The intent of the Acoustics, Noise and Vibration course is to convey physical insight into these processes by covering the theory of acoustics and vibration while presenting practical examples of solutions to frequently encountered noise and vibration problems. This project supports this course by the creation of a laboratory which will have exercises developed around a Modal/Spectrum analyzer capable of both bodal and acoustic data acquisition and analysis. These exercises will give students hands-on experience with the equipment and procedures used in industry for noise and vibration measurement while demonstrating underlying physical principles. Exercises will include tests to determine: noise generated by mechanisms and machine components; noise attenuation in materials, and active and passive silencers; and the cross-correlation of noise with modal vibrations in structures.